Paleoenvironmental Arctic Sciences (PARCS) Steering Committee Activities

This project will manage the coordination, synthesis, data collection and outreach for the PARCS (Paleoenvironmental Arctic Sciences) component of the ARCSS (Arctic System Science) Program. These activities will provide overall coordination of PARCS research to maximize its scientific impact and productivity. To achieve its goals, the PARCS Science Committee (SC) will support: (1) data and science management, (2) workshops and Working Group meetings to coordinate regional-scale projects and integration of specific data sets to address the two research priorities, (3) a PARCS Community Meeting to assess the outcome of research on the two priority topics and formulate new research priorities and collaborations, and (4) outreach efforts to disseminate information on current PARCS activities and the results of the PARCS research efforts.